Calculus, the Computer and the Mathematical Endeavor

Students are seeing that mathematics is an active area of intellectual inquiry and are participating in the scientific process of formulating and testing hypotheses. These efforts are underway in a laboratory equipped with IBM PS/2 Model 30 computers running both locally developed and commercial software. The institution will contribute an amount equal to the award.